Illuminating Galaxy Formation with the Atacama Cosmology Telescope

A central goal of extragalactic astrophysics and cosmology is to find answers to questions like: How do galaxies affect their environments? What processes are responsible for shutting off star formation in galaxies? To answer these questions, this research will use a new technique to probe the ionized gas distribution in and around galaxies identified in the NSF-funded Advanced Atacama Cosmology Telescope survey and the Dark Energy Survey, resulting in an improvement of nearly two orders of magnitude over current knowledge. This will set the stage for a further significant increase in sensitivity to follow from the Simons Observatory and the NSF-funded Vera Rubin Observatory, both coming online in the early 2020s. As part of this investigation, the PI will mentor a student from the Columbia University Bridge Program, a two-year post-baccalaureate program that increases the participation of students from under-represented groups in STEM Ph.D. programs, and a summer undergraduate student through the Simons-NSBP Scholars Program, a partnership between the Simons Observatory and the National Society of Black Physicists.

After several 3 to 4-sigma detections in the past decade, measurements of the kinematic Sunyaev-Zel’dovich (kSZ) signal are now set to dramatically improve in precision as a result of the NSF-funded Advanced Atacama Cosmology Telescope (ACT) survey and its overlap with large-scale galaxy surveys, particularly the Dark Energy Survey (DES). This project will develop the “projected-field” kSZ estimator, building on the PI’s recent first detection using this tool. Crucially, unlike other kSZ estimators, this approach does not require a spectroscopic redshift for each galaxy. Application of this estimator to data from ACT and DES to measure the projected-field kSZ-galaxy cross-correlation will result in ~60-sigma measurements of this quantity using data already in hand from these surveys.